CAREER: Distributed Coordination Strategies for Mobile Autonomous Agents

CAREER: Distributed Coordination Strategies for Mobile Autonomous Agents

Department of Electrical and Systems Engineering, University of Pennsylvania
This proposal is aimed at developing tools for analysis and design of distributed algorithms for co-ordination
of groups of mobile autonomous agents. Such coordination algorithms have appeared in
various disciplines in different contexts, ranging from biological sciences (aggregation and social
cohesion in animal species) to systems and control theory and collective robotics (cooperative con-trol
of multi-vehicle systems), and from statistical physics (non-equilibrium phenomena in many
degree-of-freedom dynamical systems) to computer graphics (artificial life, simulated flocking).
We plan to develop a unified theory which provides a provably correct analysis and synthesis of
distributed coordination and collective synchronization among a network of mobile agents with a
changing topology. Several key problems are formulated and road-maps for obtaining efficient and
scalable solutions to the problems are discussed. The proposed research plan utilizes tools from
algebraic and spectral theory of graphs, control theory and theory of dynamical systems.
Intellectual Merit: Distributed coordination problems such as collective synchronization and
flocking are ubiquitous in complex biological, engineering, and physical systems. Such prob-lems
arise in control theory, physics, biology, social sciences, power system networks and in time
synchronization in sensor networks. The common feature of all of the above problems is that a set
of (possibly mobile) agents are interconnected using simple nearest neighbor rules in a network
with a topology that is time varying. We plan to develop a unified framework which allows us
to study these problems and synthesize coordinated and cooperative systems of multiple agents.
Moreover, this study will provide a justification for the so called emergence of collective behavior
from simple local interactions, a phenomenon which has been observed across complex engineer-ing
and natural systems.
Broader Impacts: The proposed research will impact the study of complex engineering systems,
ranging from operation and joint coordination of unmanned air, ground, and underwater vehicles
as well as coordination of a network of unmanned robots to perform search and rescue operations.
The research will also impact other emerging applications in homeland security, defense, trans-portation,
wireless communication, and electric power networks, which require networks of agents
to be capable of multi-user communication, collaborative information processing, and distributed
computation, actuation, and control. The research plan is also accompanied by an active educa-tion
plan consisting of undergraduate and graduate level course development, which will provide a
framework for studying problems involving dynamic systems over networks. The plan is designed
to involve undergraduate students in research and provide them with a well-defined plan of study
to help motivate them to pursue an advanced degree. It would also bring research across several
areas of science and systems theory together in a single unifying framework.